Engineering Research Equipment Grant: Surface Profile Instrumentation

An equipment award will support purchase of state-of-the-art surface profilometry instrumentation. The equipment will be used to validate the P.I.'s theoretical models for surface roughness of machined and worn surfaces and for additional research on surface generation and characterization.